UNH Mathematics and Marine Science Program

The University of New Hampshire Mathematics and Marine Science Program (UNH M&M Program) will be an integrated approach to introducing participants to scientific studies and careers. This is a three week summer program consisting of the study of marine science, probability, statistics, computer analysis of data, and scientific methodology. Twenty 10th grade students will receive classroom instruction in the above areas, and participate in four field trips revolving around the study of coastal issues and environments. The UNH Sea Grant Program has access to several wildlife areas including an offshore island laboratory. Field trips also will be conducted to Great Bay, Appledore Island, Odroine Point, Portsmouth Harbor, and local salt marshes. All instruction will be provided in a team-teaching format.